Association of Research Libraries and Internet Archive Workshop: "Research in the 'Born-Digital' Domain" on March 12-13, 2001 in San Francisco, California

This proposal is to fund travel to a workshop in San Francisco, March 12-13, 2001, on the subject of digital preservation and digital archiving. The workshop will identify and stimulate pilot projects in the collectin
and use of born-digital information, build agreement on guidelines for servicing and use of born-digital material, and write a white paper on the role of born-digital resources in research libraries, including an outline of next steps and identification of the individuals and organizations that could take them. It will improve our understanding of how to use digital information for long-term societal benefit.